400 MHz NMR Spectrometer

This award from the Chemistry Research Instrumentation Program will help the Department of Chemistry at the University of Oklahoma in the purchase of a modern 400 MHz multinuclear NMR Spectrometer. This equipment will be used in the following areas of research: (1) Chiral transition metal complexes; (2) Oxidation chemistry and biochemistry in the brain; (3) Liquid crystals and polymerized electrolyte gels; (4) Catalytic asymmetric reactions; (5) Organotransition metal chemistry; (6) Marine natural products; (7) Siderophores; (8) Synthesis, stabilization, and application of reactive or organic moieties; (9) Nucleotide analogs; (10) Nitrosylmetalloporphyrins; and (11) Divalent transport by polyether ionophores. Nuclear Magnetic Resonance (NMR) spectroscopy is the most powerful tool available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances, characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometry is essential to chemists who are carrying out frontier research.